Engineering Research Equipment Grant: Development of Packaging Design Support Environment

This award is for computer equipment to augment that in the Center for Electronic Packaging Research of the Department of Electrical and Computer Engineering, University of Arizona. The equipment will enable the Center, which is well staffed to carry out research in electronic packaging, to continue to move into the emerging area of computer-aided Very Large Scaled Integration interconnection design and analysis. The equipment will facilitate the development and testing of a large scale software system involving both numerical and symbolic processing.